Communities and Connections in the World of Nature

9355760 Baumann The Bay Beach Wildlife Sanctuary requests $58,414 from the Informal Science Education Program of the National Science Foundation to infuse an environmental education message with innovative approaches to visitor self-instruction, through the two elements which comprise our Communities and Connections in the World of Nature project. This $364,097 project is an ambitious attempt to introduce and involve BBWS visitors with the fascinating interactions of life which hold all living communities together. Fine and coarse grain examination of 11 ecological concepts (e.g., habitat, human impacts, energy flow, etc.) central to these interactions is achieved through a creative blend of innovative public programs, museum-style interactive exhibits, engaging graphics and habitat-oriented live animal displays. Specifically, NSF funding will allow BBWS to: 1) Develop and conduct participatory educational programs (Jr. Naturalist/ages 5-8, Jr. Ecologist/ages 9-12) that introduce ecological themes and concepts to families and school groups. 2) Develop and produce a 180 sq. ft. computer-based interact exhibit (Habitat Puzzle) that encourages visitors to explore ecological concepts of habitat composition in depth.